Acquisition and Operation of a Light Microscopy and Digital Imaging Facility

Karr 9724473 This proposal describes a shared confocal microscopy facility at the University of Chicago that will open new lines of research for a broad range of scientists. To meet the immediate and anticipated demands of the user base, the proposed facility will include two stand-alone systems, a Zeiss LSM confocal systems have complementary strengths, but both are capable of producing high-resolution confocal images and are suitable for either fixed or living specimens. Visualization of datasets will be accomplished using Macintosh PowerPC and Silicon Graphics computers and associated software for image analysis and display. Because biological imaging and visualization is still very much a "hands on" enterprise and remains for the most part quite technical, the proposed facility is designed to provide a "user friendly" environment to made the technology accessible to individual investigators, their trainees and students. To this end, the facility will be a staffed by an FTE whose mission will be to train and assist researchers who wish to utilize the capabilities of these powerful machines.